SBIR Phase I:Feasibility Study for Cheminformatics Teaching Tools

This Small Business Innovation Research Phase I project addresses the feasibility of designing
and building virtual classroom software tools for cheminformatics training in both academic and
business settings. Mesa Analytics & Computing, LLC has developed a commercial, integrated
suite of the leading edge cheminformatics software tools in the cheminformatics areas mentioned
above. However, these tools, containing new and original research by Mesa, are for use in large
scale research and industrial applications, where the users already have experience in
cheminformatics software. The research goals of this project are to show that virtual classroom
software tools will be effective, comprehensive, and low cost products for training in both
academic and industry settings. This project will assess the portability and scalability of
software tools for interactive distance learning in chemical information topics, such as finding
structural commonalities in diverse compound sets, generation and use of structural compound
descriptors, similarity searching and clustering, and compound diversity analysis for compound
acquisition. The project will produce a report outlining the design of the training software tools,
including the graphical user interface and virtual classroom integration, from the underlying
research and commercial tools.

At present there are no specific software tools for chemical information training in the U.S.,
though there are several nascent chemometrics and chemical information university departments
and curricula. A number of commercial software products used in the pharmaceutical and
biotechnology industry are either too expensive or of limited utility for training in either
academic or business settings. Converting Mesa's tools into training tools for concept learning
will serve the dual purpose in providing cheminformatics training tools for both academia and
industry. By employing distance learning through a web delivery system, the training software
will provide an effective, low cost solution for academic institutions, whether they are offering a
single course to rural students in a remote setting, or an entire program in cheminformatics and a
major urban university. In addition, such training tools will be very useful in industry settings
with local area networks, where in a multidiscipline setting individuals need to receive training
on the concepts employed by industrial chemoinformatics software--an integral part of the drug
discovery process for pharmaceutical and biotech industries.
Key words: cheminformatics, chemometrics, clustering, compound diversity analysis for
compound acquisition, distance learning, similarity searching, structural commonalities in
diverse compound sets, structural compound descriptors, virtual classroom.
Subtopic: B. Teaching and Learning
PROPOSAL NO.: 0339360
PRINCIPAL INVESTIGATOR: MacCuish, Norah
INSTITUTION NAME: Mesa Analytics & Computing, LLC
TITLE: SBIR Phase I:Feasibility Study for Cheminformatics Teaching Tools
NSF RECEIVED DATE: 06/11/2003